Radio Investigations of the Galactic Center Region

Dr. Mark Morris, at the University of California, Los Angeles, will carry out observational research on the nucleus of our Galaxy at radio wavelengths. During several years of observing with the Very Large Array, the PI and his colleagues have gathered a very extensive body of data on the Galactic Center, and they have made several discoveries which highlight the importance of strong magnetic fields in the inner regions of the Galaxy. Their current research continues these studies with intensive computational work to realize the full potential of the existing data base and with new observations to clarify the physical processes responsible for the unique observed phenomenology. The Galactic Center provides a close-up example of a moderately active galactic nucleus. As such it can be expected to give us new insights into processes which also occur in the more active Seyfert and quasar phenomena. With new instrumentation such as the Very Large Array and new data analysis capabilities such as image processing on supercomputers, we are able to study the structure of the center of our Galaxy in unprecedented detail. Dr. Morris has been a leader in refining our knowledge about the Galactic Center.